CPMSA: "Hartford Partnership for Minority Student Achievement"

The Hartford Public Schools requests $2,966,810 for a five year project to implement its Comprehensive Partnership for Minority Student Achievement. Through the efforts of a strong alliance led by the Hartford Public Schools, it will more than double the number of minority students enrolling in and successfully completing precollege courses and triple the number advancing on the SMET studies in four year colleges by the last year of the grant cycle. The Hartford Public Schools is the largest school district in Connecticut and the second largest in New England, enrolling 24,745 students in thirty-two schools. Enrollment is 94% minority, about equally divided between African American and Hispanic populations, making it the highest percentage minority enrollment LEA in New England. Hartford's school dropout rate, poverty index, and adolescent crime and unemployment are among the highest in the nation. Among Connecticut's 166 school districts, Hartford students score the lowest on State tests in reading, mathematics and science. Less than 2% of graduating seniors go on to pursue SMET studies in higher education. Confronting these dismal statistics, the Hartford Board of Education, with help from parents, teachers and leaders from higher education, government, business and the community has made school reform its top priority. Guided by a reform-spirited Strategic Plan, the school system has set its sights on revolutionizing its educational program. hartford's CPMSA both complements and strengthens Plan initiatives, and a successful application will enable Hartford to focus even greater energy and resources in the critical area of science and mathematics teaching and learning. The Hartford CPMSA will lead systemic change through the strategic use of resources in an environment of true partnership. Hartford's proposed CPMSA builds on past NSF-funded efforts to both the school system and its partnering agencies and focuses on revitalizing science and mathem atics education through (1) teacher training (2) student enrichment (3) parent involvement and (4) curriculum reform and enhancement. 1,016 teachers--90% of K-6 generalist teachers and 100% of 7-12 mathematics and science teachers--will be trained through the project and all of Hartford's students will benefit, with 4,470 directly participating in after school, weekend and summer activities. Hartford and its partners are prepared to offer a wide and coordinated array of activities through the CPMSA and through the extensive leveraging of resources that build on recent efforts. These efforts include: a nationally acclaimed, Fund for the Reform and Improvement of Schools and Teaching pilot project integrating mathematics, science and technology at the middle school level; a new K-12 mathematics curriculum and a strengthened 7-12 science curriculum; a network of higher education providers and representatives from government, business, industry, and community-based organizations geared towards attracting and keeping minorities in college; a new set of performance standards across all grade levels in all content areas; and a recently authorized technology improvement budget. The Hartford area is rich in science, mathematics, engineering and technology-infused business and industry. However, the gap between the competencies of Hartford school system graduates and local labor market needs has widened during the last ten years, with industry becoming increasingly technological and complex at the same time that student performance has plummeted. The CPMSA is an opportunity to prepare Hartford's youth for future employment in these industries as it raises the number of minority SMET professionals in the population and contributes to lasting reform of the Hartford Public Schools. ***